Hotspot California: Bringing Dioramas to Life Through Community Voices

The Oakland Museum of California (OMCA) will develop, implement, and evaluate Hotspot California, a research-based natural science gallery transformation that will explore the educational potential of wildlife dioramas to engage the public in urgent environmental issues. The exhibition will showcase five real places in California that exemplify high biological diversity and complex environmental issues. Innovative approaches to interpretation will emphasize personal connections to these places and infuse static dioramas with visualization technologies that illustrate environmental change over time. The project will explore how such enhancements to dioramas might help visitors develop place-based connections to the natural world.

The project has four major deliverables: 1) an innovative 25,000 sq ft gallery exhibition installation featuring five specific California places where California's unique biodiversity is threatened; 2) an application and evaluation of a new participatory exhibit design model involving community contribution, collaboration, and co-design; 3) a two-day "synthesis symposium" for informal science education professionals to consider broad applications of project findings for the field; and 4) "Diorama Dilemmas: A Source book for Museums," synthesizing relevant literature, case studies, and findings from the project's research and evaluation generalizable to the field.